Acquisition of a CCD X-ray Diffractometer

With support from the Chemistry Research Instrumentation (CRIF) Program, the Department of Chemistry at the University of Oregon Eugene will acquire a CCD X-ray diffractometer. This equipment will enhance research in a number of areas including the following: a) studies of organic molecules of biological and technological relevance; b) inorganic catalysts important in the energy field; c) nanoclusters for use in electronic devices; d) molecules that can be used as non-biological molecular motors; and e) new solid-state materials.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, including materials chemistry, preparation of more efficient catalysts, and biotechnology.